REU: Modeling Studies of the Eastern Boundary Flow Off Western Australia

This project is to investigate, via numerical model techniques, a number of important oceanographic processes. A model recently has been made of the ocean circulation with eddy- resolving capability, and will be compared with ocean measurements in several regions, including the Leeuwin Current off Western Australia. This project is a Research Opportunity for Women.